Mathematical Explanation

Explanations are central to science and ordinary life. It is thus not surprising that the topic of scientific explanation is central to philosophy of science. By contrast, the topic of explanation in mathematics has received very little attention. However, mathematicians recognize that some proofs or theories are more valuable than others on account of their explanatory power. Mancosu proposes to investigate the topic of mathematical explanation from three different points of view. The historical part of the project shows that concerns about the explanatory power of proofs and theories have shaped the history and the philosophy of mathematics since the Greeks. The second part of the project is related to mathematical practice. Here, he will analyze, by means of a suitable choice of mathematical episodes from twentieth-century mathematics, the major patterns of mathematical explanation found in mathematical practice. In the third part of the project, Mancosu will provide an analytical discussion of the available theories of mathematical explanation (Steiner, Resnik, Kitcher) and propose his own account of mathematical explanation.